U.S.-France Cooperative Research: Collision Induced Absorption of H2-X Complexes in Infrared

This three-year award supports U.S.-France cooperative research in astrophysics between W. Lothar Frommhold of the University of Texas at Austin and Jean-Pierre Bouanich and others at the University of Paris (South). The objective of their research is to improve understanding of the physics of collision induced absorption processes at the fundamental molecular level. Dr. Frommhold is a recognized leader in the theoretical aspects of collision induced absorption. His group in Texas has produced computations of absorption spectra of hydrogen molecular pairs. This is complemented by the French group's excellent experimental record in laboratory measurements of collision induced absorption. The Texas group proposes to compare their theoretical results with the high quality measurements of the French group. In the process, significant and reliable new data will be obtained. The project is of major interest to astrophysicists specializing in the atmosphere of outer planets and cool stars where hydrogen and helium are major elements. The verification of the theoretical work in collision induced absorption will advance our understanding of the process and its application to star formation in collapsing clouds.